CAREER: Pushing the Limits of Low-Power Wide-Area Networks

Future smart cities will have to provide Internet connectivity to millions of energy-starved Internet-of-
Things devices - even those several miles away from the nearest wireless base station. To this end, recent
years have seen novel Low-Power Wide Area Networks (LP-WANs) deployed, such as LoRa and NB-IoT.
Unfortunately, today’s LP-WAN technologies require a battery to power these devices, which impacts
their maintenance cost and reliability. This proposal aims to develop a city-scale LP-WAN architecture
that offloads connectivity, sensing and even the source of energy to the more capable base stations and
cloud infrastructure. We develop an architecture where base stations actively collaborate to enable faster
and more reliable connectivity to low-power devices, sense their location and surroundings and provide
energy they require to operate in the first place. The proposed work has a detailed integrated education and
outreach program including course projects that leverage a live testbed and summer labs for K-12 students
in Greater Pittsburgh. The proposed work will be deployed initially to network existing smart sensors at
CMU and later scale to surrounding city infrastructure, through extensive collaborations with the City of
Pittsburgh, forming a first-of-its-kind university-led programmable LP-WAN deployment.

The proposed work enables Low-Power Wide-Area Networking in dense smart-city deployments along
three axes: (1) Long-Range Wireless Charging: First, the proposal investigates a system at the base stations
that beams power to battery-free clients at unknown locations. We explore base station and client designs to
perform wireless charging over large distances, orders-of-magnitude higher than prior work. (2) Pushing
LP-WAN Speed and Scaling Limits: Next, the proposed work explores a solution to decode collisions from
even the weakest of LP-WAN signals that cannot be detected at any single base station. The proposal argues
why power starved LP-WAN clients motivate the need for even mundane PHY-layer functions at the client:
radio configuration, decoding and rate adaptation - to be offloaded to the more capable infrastructure.
The proposal then explores intelligent ways for base stations to collaborate at the cloud, despite limited
backhaul bandwidth. (3) City-Scale Wireless Sensing: Finally, the proposed work investigates novel sensing
solutions that use RF signal measurements received both from city-wide low-power radios as well as
CubeSats in Low-Earth Orbit, collated at the edge and cloud. We evaluate how such a system can sense
properties such as structural health and atmospheric moisture at city-scale, without requiring dedicated
sensors on low-power devices.